Computerizing Introductory Physics Laboratories to Improve Student Learning

Physics (13) This project is creating a curriculum that will enhance students' first year physics experience and pave the way for a more vital discovery-based program in the advanced courses and the major. It will thus increase the interest and expertise of women in physics and technology.

The project will adapt and implement computer and technology based laboratories and exercises into the introductory physics curriculum, including Workshop Physics and Just-in-Time Teaching. The curricular adaptations will include discovery-based, active learning techniques. Computer-interfaced experiments allow for the experimenter to reduce the number of tedious or cookbook tasks, and allow for her to have a more visual, complete view of the data at hand. The World Wide Web will be used extensively for interactive exercises (physlets) and for Just in Time Teaching techniques. The Web allows the student to carry out interactive; visual exercises and allows for almost instantaneous interaction among students or between the students and professor.